Atomic physics investigations of light localization in high density ultracold 87Rb vapor

The overriding theme of this experimental research program is investigation of phase transitions in ultracold atomic vapor. Over the past decade, experimental and theoretical advances have led to exquisite control, manipulation, and understanding of dynamic and kinetic properties of ultracold vapor-phase matter. However, in spite of enormous progress in studying strongly correlated systems in ultracold atomic gases, important aspects of the complexity of condensed system remain to be explored. One of these is the critical influence that disorder has on transport properties of realistic physical systems. The research program is focused on experimental exploration and understanding of localization of electromagnetic waves in ultracold atomic gases. As individual photons are essentially noninteracting bosons, a nearly idealized system can be realized with a spatially disordered gas of stationary scattering atoms. The research also can have an important impact on an array of problems in quantum linear and nonlinear optics and quantum information

The research program has significant broader impact on science education, infrastructure, and diversity. A potential application of the work is the use of photon localizing samples as quantum repeaters. The current technical limitations of such devices is a main impediment to long-distance secure quantum communications. Educational impact is partly accomplished by substantially involving undergraduate and graduate students in all parts of the scientific projects, including attendance at undergraduate-focused symposia at professional conferences. Students will also participate in undergraduate and masters degree independent projects associated with the experiments. Finally, the research impacts international science education and infrastructure through involvement of Ph.D. students and faculty in international components of this research with academic colleagues and students in Russia and France.